Image Progessing Research Equipment

Image Processing equipment will be provided for researchers at North Carolina State University in the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in computer and Information Science and Engineering program. The Research for which the equipment is to be used will be in the area(s) (1) Coding of single frame images for transmission and storage (2) Coding of Sequential frame imagery for transmission over low bandwidth channels (3) Image restoration and reconstruction from incomplete and partial information (4) Reconstruction of several biomedical imaging modalities, and (5) Three-dimensional object recognition and description from two- dimensional images.